Collaborative Research: Eurythermal Adaptations to an Extreme Environment by the Symbionts of the Hydrothermal Vent Polychaete, Alvinella Pompejana

Symbiotic associations between bacteria and eukaryotic hosts are a prominent feature in marine systems. Whether the bacteria reside external to the host or endosymbiotically, the role of the association often remains poorly understood. This lack of understanding, in part, stems from our inability to cultivate the majority of these symbionts free from their host. Even in instances where cultivation is possible, it is unlikely that the physiological capacities of bacteria measured in the laboratory truly represnt those in the natural ecosysem. Molecular genetic approaches have the capability to resolve the metabolic potential of these bacteria and thereby infer their function in the association. The proposed research seeks to understand the metabolic potential of the primary members of a diverse epibiotic bacterial community found associated with the tube-dwelling polychaete, Alvinella pompejana. This association exists in a deep-sea hydrothermal vent biotope characterized by high concentrations of heavy metals and the steepest thermal gradient experienced by an organism yet described.